Interference Effects in Conductors and Superconductors

0228104
Spivak
This award supports fundamental research and education in condensed matter theory and the particular area of mesoscopic physics. The PI will carry out theoretical investigations of electronic interference phenomena in metal. The topics and systems for investigation include superconductor-ferromagnet interfaces, phase separation near the metal-insulator transition in silicon MOSFETs, and the superconductor-insulator transition. This work supports graduate level education of the next generation of condensed matter theorists.
%%%
This award supports fundamental theoretical research and education that seeks to advance our understanding of quantum mechanical effects involving electrons that occur on mesoscopic length scales in metals and superconductors. This basic research helps improve understanding of fundamental and novel quantum mechanical effects that occur in materials and contributes to the intellectual underpinnings of potential future electronic device technologies. This award also supports training the next generation of condensed matter theorists.
***